CS 10K: Collaborative Research: A Structured CS Principles Approach to Professional Development for Maryland High School Teachers

The University of Maryland Baltimore County, in collaboration with the University of Maryland College Park, will develop and evaluate professional development activities focused on increasing the expertise of Maryland high school teachers for teaching computer science, with the ultimate goal of increasing the number of rigorous computer science classes offered across the state and the number and diversity of students taking these classes. Experienced higher education faculty and highly effective high school teachers will collaborate to train other high school teachers to develop and offer a college preparatory CS curriculum. In the first year, an initial cohort of 12 master teachers will collaborate with the project leadership team to develop standardized classroom materials based on the CS Principles curriculum and then offer the CS Principles course in their home schools. In the second year, the project staff will train less experienced teachers in the CS Principles curriculum, and in the third year, the leadership team will demonstrate scalability by supporting the delivery of multiple independently funded regional workshops.

The proposed project will develop course materials, create training materials, and increase the expertise of high school computer science teachers in Maryland. Master teachers and apprentice teachers will be trained in the new curriculum, increasing the readiness and ability of schools and teachers to adopt and offer the CS Principles curriculum and increasing the availability of academically rigorous CS courses in high schools across the state. The proposed effort will ultimately lead to increased interest of Maryland students in studying and pursuing careers in computer science.